Incorporation of Fourier Transform Nuclear Magnetic Resonance Spectroscopy into the Chemistry Curriculum

The Department of Chemistry and Physics purchasing of a 300 MHz Fourier Transform nuclear magnetic resonance spectrometer. The applications of NMR is being integrated throughout the curriculum with increasingly sophisticated techniques as the student progresses through the program's course sequence. Beginning with exposure to C-13 NMR in general chemistry the experience builds to investigation of temperature dependent fluxional behavior of organometallics and 2-dimensional techniques in biochemistry and advanced organic chemistry. The instrument is also enhancing an active undergraduate research program.